The Acquisition of a High Abundance Sensitivity Thermal Ionization Mass Spectrometer

9406370 Zindler This award provides one-half the funding required for the acquisition of a high-abundance-sensitivity, multicollector, thermal ionization mass spectrometer that will be installed and operated in the National High Magnetic Field Laboratory at Florida State University. The Florida State University is committed to providing the remaining funds necessary for the acquisition. The equipment will be used primarily for research in geosciences dealing with the geochemistry of the Earth's mantle and crust. ***